Mathematical Finance and Stochastic Networks

This proposal has two parts. The part on stochastic networks will
consider networks of queues in heavy traffic when tasks have due dates.
The lead times (time until due date) of these tasks are modeled as
counting measures on the real line. As part of a previous project, the
limit of these measure-valued processes was identified as the network
traffic intensity approached one. This project will identify the
difference between the limiting measure-valued process and the pre-limit
processes, so that the accuracy of using the limiting process as a model
for a heavily loaded network can be determined. The second part of the
proposal treats credit risk in financial markets. Of particular interest
is the spread movements of tranches of collaterialized loan obligations.
These respond to market expectations concerning the default probabilities
of the loans composing the structure, but in a highly nonlinear way.

Computer networks, manufacturing networks and telephone networks have the
common feature that tasks (e.g., messages, silicon wafers, telephone
calls) arrive at stations (e.g., computers,, machines, switches) at random
times and require random amounts of service. Under heavy traffic
conditions, the performance of these networks can be analyzed using the
theory of Brownian motion. In this project, we consider networks in which
tasks arrive and must move through and exit the network ahead
of deadlines. This project will develop a method to determine what
proportion of tasks a network will process within their deadlines.
Brownian motion is also the fundamental process for building models of the
behavior of prices in financial markets. A second part of this proposal
will consider prices of financial assets that are backed by loan
payments (e.g., mortgage-backed securities). These assets are
sensitive to the credit risk of the loans backing them. Construction of
reliable models for the price movements of these assets is an important
step in measuring and controlling the risk associated with holding
and trading these securities.